Workshop on Symplectic Field Theory; May 14-20, 2005; Leipzig, Germany

Abstract

Award: DMS-0505968
Principal Investigator: Helmut H. Hofer and Dusa McDuff

This instructional workshop, co-sponsored by the DFG (the German
equivalent of the NSF) will bring together junior and senior
researchers in the field of symplectic geometry. The field has
its origins in Hamiltonian dynamics and geometric optics and has
many fundamental applications. For example, numerical methods
based on symplectic ideas (symplectic integrators) are used to
compute the orbits of satellites and other celestial
bodies. Historic highlights are KAM-Theory
(Kolmogorov-Arnold-Moser), which leads to a proof of the
stability of our solar system, and the theory of
infinite-dimensional integrable systems, which is the
mathematical underpinning of fiber optics, a technology that lies
at the heart of all of our communication networks. More recently,
the rapidly developing theory of pseudoholomorphic curves has led
to deep new insights into the structure of three and
four-dimensional space, and to unexpected new connections between
geometry and physics. It is a surprising fact that the same
underlying ideas apply to geometric optics, to dynamics and to
the most abstract physics (i.e. string theory).

It is the purpose of this instructional workshop to describe the
construction of symplectic field theory (SFT) in detail. SFT is a
comprehensive theory of symplectic invariants, including such
well-known theories as Floer theory, Gromov-Witten theory and
contact homology. It is constructed by measuring moduli spaces of
pseudoholomorphic curves. The richness of its structure comes
from the fact that the moduli spaces have boundaries and
singularities and that infinitely many moduli spaces interact
with each other. These structures can be captured by a novel
nonlinear Fredholm theory which is distinguished by two
facts. The ambient spaces do not carry smooth structures in the
usual sense and even have locally varying dimensions. However
there is a notion of transversality (or regularity), and at
regular points the solution sets are smooth orbifolds with
boundaries and corners. Moreover the theory makes precise what
it means for infinitely many Fredholm operators to interact with
each other, which leads to a so-called "Fredholm Theory with
Operations". This abstract Fredholm Theory is developed and
illustrated by its application to SFT. The issues addressed are
pertinent to a variety of important problems, and one can expect
that the ideas presented at the workshop will have implications
in a number of mathematical fields and their applications.